Mathematical Sciences: Inverse Boundary Problems

The project will concentrate on electrical impedance tomography and X-ray tomography. Electrical impedance tomography is a non invasive method to determine contrasts of conductivity in the human body. The main goals will be to prove uniqueness in the two dimensional case and to develop efficient reconstruction algorithms. The project also includes the anisotropic case of the problem, i.e. the case in which the conductivity depends on direction. The aim of this research is to understand the mechanisms of nonuniqueness as well as to develop reconstruction algorithms. Also analogous questions for determining the elastic properties of a material by making boundary measurements will be studied. Problems in X-ray tomography where the integration is performed over a 3-dimensional set of lines will be considered. This work encounters applications not only in medical imagery but also in nondestructive testing of machinery and materials.